Laboratory Driven Instruction in Chemistry

9354432 Lamba The goal of this project is to revitalize the undergraduate chemistry curriculum by adopting laboratory-driven instruction using the discovery (inquiry) approach. With this approach, new topics would be introduced first in the laboratory and then discussed more fully during the lecture. The central objective is to develop, implement, evaluate, and disseminate a comprehensive set of instructional modules that will address the concerns of chemistry educators and satisfy the needs of introductory chemistry curricula. The modules will include student handouts, a teacher's guide, and suggestions for their implementation. The modules will be appropriate not only for science majors but also for non-science majors. Initial development has initiated in the students a positive response and attitude towards chemistry. Five colleges and universities involved are collaborating in testing the discovery exercises and the instructional modules. Dissemination will be through this broad outreach and materials development. Evaluation will be carried out during the project and with students after their graduation. ***y